Workshop on Shallow Tropical-Subtropical overturning Cells (STC)and their Interaction with the Atmosphere

0084603 Rizzoli

Funding is providing to support a workshop on shallow tropical-subtropical overturning cells (STC) and their interaction with the atmosphere. The goal of the workshop is to assess the present understanding of the structure and dynamics of the shallow tropical-subtropical overturning cells in the tropics and develop strategies for future observational and modeling studies. Through their effects on sea surface temperature the STC's have been proposed as the oceanic component of coupled modes of air-sea variability that influence the atmospheric climate on decadal time scales. Physical oceanographers and meteorologists will participate in the workshop. The funds requested from NSF will support travel expenses for graduate students, young scientists and some needy invited speakers and program committee members. This workshop will be a contribution to the CLImate VARiability and predictability (CLIVAR) program.